ADVANCE Leadership Award

The PIs propose to educate women geoscientists on the barriers to their progress in academia
and on strategies to overcome those barriers. Their goal is to increase the proportion of women in
geoscience tenure track and tenured positions in academia in the United States.

Project objectives are to:
1) determine the current status of women in academia through a survey of geoscience
departments in the United States,
2) conduct focus groups and surveys of students, tenured and untenured faculty and non-tenure
track faculty at national geoscience meetings to determine what is the perception of barriers
to women's progress in the field,
3) hold a 1-day workshop to investigate the causes of the low representation of women in
academic geoscience positions in the United States, and
4) Disseminate the information to geoscience students, junior faculty and to academic
administrators to educate women students and faculty on strategies to overcome barriers,
encourage women to pursue academic geoscience careers and teach administrators how to
recruit and retain qualified women in geoscience.
This approach to increasing women's representation in the geosciences takes a 'supply-side' or mentoring approach, with a focus on teaching women what they need to
know to become (i) educated in the field without discrimination, (ii) to negotiate salaries and
contracts, and (iii) to find out what is required to achieve tenure at their institutions.

This project is supported by the NSF ADVANCE Program. The overall mission of the ADVANCE Program is to increase the participation of women in the scientific and engineering workforce through the increased representation and advancement of women in academic science and engineering careers.